Research Program in Experimental Intermediate Energy Physics

0072416
Jones
This award supports research in connection with experiments at
Thomas Jefferson National Accelerator Facility (TJNAF). The primary effort is directed at the RadPhi experiment, which measures
radiative decays of the phi(1020) meson to scalar states a0(980) and
f0(980). The relative rates of these decay modes hold an important
clue that is need to resolve a long-standing puzzle surrounding the
quark-gluon structure of these states. A second line of research is
directed toward the proposed Hall D facility at TJNAF, which has the
potential to provide qualitative new insights into the nature of
confinement in mesons. UConn will play a major role by taking
freponsibility for the design of a new coherent photon source and
beamline.